An Investigation into Crystallization and the Subsequent Inelastic Response of Semi-Crystalline Polymers from a Continuum Perspective

Semicrystalline polymers find a variety of uses in the industry due to their ability to undergo large deformations while retaining their toughness. The mechanical, electrical, and optical properties of these polymers are affected by their processing conditions; in particular the temperature induced crystallization. One factor tat plays a major role is the abrupt change in material symmetry caused by temperature induced crystallization. A theoretically rigorous framework for studying the temperature-induced crystallization is being developed. This framework provides a basic for reliable numerical predictions that affect a number of industrial applications including fiber spinning, film blowing, and molding and extrusion processes.